SGER: Exploratory Atomistic Studies of Nano Particle Growth Kinetics

Abstract CTS-9802998 M.R. Zachariah, University of Arizona An atomistic simulation method will be used in order to understand and predict coalescence and growth of aerosol nanoscale particles. Exemplification will be performed for two component systems and particularly for metal oxides ( silicon-dioxide and titaniym-dioxide). This is an exploratory research for the application of the method to evaluate the fundamental thermodynamic properties of nanoparticles and particle formation mechanisms. The simulated ratios of coalescence of two clusters will be compared to available phenomenological models for sintering kinetics. A sensitivity analysis on the two-body potential parameters will be conducted in order to test the effect of the bond strenght, ionic and covalent components on the sintering mechanism. Vapor-phase generation of metal-oxide nanoparticles has a multibillion-dollar production per year. If successful, this research will provide improved fundamental understanding and a predictive atomistic method for controlling the growth of the particle as a function of the thermophysical properties of the materials.